Mathematical Sciences: Special Year in Several Complex Variables

This project is a Special Year in Several Complex Variables at Purdue University in the 1988-89 academic year. The purpose is to stimulate interaction between basic areas of research in Several Complex Variables including CR geometry, the d-bar Neumann problem, the Monge-Ampere equation, boundary behavior of holomorphic mappings, and complex differential geometry. Besides the faculty regularly at Purdue who specialize in several complex variables, Laszlo Lempert and Eric Bedford will spend the year there, and Linda Rothschild and Sidney Webster will visit for a month or so. During the 1988-89 academic year, about 25 other specialists will come to Purdue for visits of from one week to two months. The Midwest Several Complex Variables Conference will be held at Purdue September 14-15 in conjunction with this special year, and will feature L. Lempert, F. Forstneric, E. Ligocka, M. Christ, M. Machedon and others as main speakers.